Dissertation Research: Molecular Perspective of Kangaroo RatPhylogenesis: A Framework for the Study of Biological Diversity

Biological diversity within and among species can contain genetic, physical, behavioral, and cultural variation. Most organisms show geographic variation of these kinds, and tolerate a diverse array of ecological conditions. While biological diversity is of interest to a broad group of people, few actually study the geographic patterns of that variation or the processes which give rise to it or maintain it. The deserts of western North America hold an enormous amount of biological diversity, as measured by the number of species. The 24 species of kangaroo rats are one clear example of this diversity. These seed-eating kangaroo-shaped rodents are divisible into over 110 geographically distinct forms. This is based simply on their appearance. Variation in genetic material, behavior, ecology, and life history will be studied using cytological and molecular techniques. A understanding of that variation and studies of the processes which produce and maintain that variation will enable us to understand some of the biological diversity which comprises our natural heritage.